1993 International Symposium on Lepton and Photon Interactions; Ithaca, New York; August 10-15, 1993

Professor Galik is the chairman of the organizing committee of the 1992 International Symposium on Lepton and Photon Interactions. The conference will be held in Ithaca, New York, at Cornell, on August 10-15, 1993. This grant, in support of the conference, will continue the tradition of the 'Lepton-Photon' international conferences began in Cambridge, Massachusetts, in 1963. These conferences will be held every other year under the auspices of the International Union of Pure and Applied Physics, bring together about 1000 physicists from throughout the world to discuss the latest results in elementary particle physics research.